Publication support and travel support for U.S. participation in the ICAE/IAMAP Conference, St. Petersburg, Russia, June 15-19, 1992

The objective of this request is the provision of travel support for qualified participants in the Ninth International Conference on Atmospheric Electricity to be held in St. Petersburg, Russia (15-19 June 1992) and the publication of the results in a special issue of the Journal of Geophysical Research.